Collaborative Research: Systems of Ordinary Differential Equations - Inverse and Non-Self-Adjoint Problems

Abstract: 0405528/0405526 Gesztesy/Clark University of Missouri Columbia and Rolla

Collaborative Research: Systems of Ordinary Differential Equations - Inverse and Non-Self-Adjoint Problems

Research is proposed in two areas of systems of ordinary
differential equations pertaining to inverse spectral problems and a
class of non-self-adjoint singular Dirac-type boundary value
problems. The research problems proposed lead to important
applications in connection with completely
integrable nonlinear evolution equations and to applications in
soliton based optical communication systems. The first area is
concerned with inverse spectral problems with emphasis on
characterizing isospectral manifolds for
self-adjoint matrix-valued Schroedinger and Dirac-type operators with
periodic (and certain classes of quasi-periodic) coefficients.
The techniques involved comprise matrix-valued Herglotz functions,
inverse spectral theory, uniqueness theorems of Borg and
Hochstadt-type, and pencils of matrices and their factorizations. The
second area is concerned with spectral theory for a non-self-adjoint
singular boundary value problem associated with a particular
Dirac-type operator. The latter permits the existence of
Weyl-Titchmarsh-type solutions for any point in its resolvent set
under the most general hypothesis of merely local integrability of
the potential coefficient. This property has not previously been
observed in non-self-adjoint boundary value problems and hence makes
this Dirac-type operator a model operator of particular interest. The
common thread through all the problems proposed is the use of
(matrix-valued) Weyl-Titchmarsh-type functions which encode all
spectral information of the underlying Schroedinger and Dirac-type
systems.

Inverse spectral theory for self-adjoint Schroedinger and Dirac-type
boundary value problems, as proposed in the first part of this
proposal, is one of the pillars of applications of spectral theory to
the applied sciences including theoretical physics (quantum physics),
geophysics (seismology), medicine (tomography), etc. As such, it is
an integral part of modern applied mathematics. In addition, this
first part permits applications to completely integrable systems,
especially to soliton equations such as the nonabelian Korteweg-de
Vries and the defocusing nonlinear Schroedinger hierarchies of
evolution equations. Completely integrable systems of this type, a
rapidly developing field in pure and applied mathematics especially
since the second half of the 20th century, have widespread and
multifaceted applications which include shallow water wave modelling,
various aspects of nonlinear optics, and problems in condensed matter
physics. On the other hand, many concrete applications of completely
integrable systems naturally lead to non-self-adjoint boundary value
problems. A prime example would be the area of nonlinear optics as
modelled by the focusing nonlinear Schroedinger equation. The latter
is intimately connected with a non-self-adjoint Dirac-type operator,
the principal object of study in the second part of this proposal.
While general spectral theory (and especially inverse spectral
theory) for such non-self-adjoint Dirac operators is still in its
infancy, we propose a new model for a soliton based optical communication
system based upon our proposed study of a special class of soliton
potentials relative to a periodic background potential.